Order and Chaos in Classical and Quantum Mechanics

The research involves the theoretical interpretation of absorption spectra of atoms in external fields using semiclassical techniques and where necessary bifurcation theory.